Computerization of Archaeological Mapping in Field School and Field Methods Classes

An electronic theodolite coupled to an electronic distance meter, a small hand held computer and a field printer, subsequently interfaced with the field laboratory microcomputer, enhance the ability of students to participate in the analysis of data in an archaeological field school context. The same equipment, by increasing the efficiency of data collection, allows on campus students in an archaeological field methods class to map data for the more satisfactory completion of research projects. The award will be matched by an equal sum from the grantee.